Second Purdue Minisymposium on Financial Mathematics; April 15-16, 2005; West Lafayette, IN

This proposal requests funds to support the Second Purdue Minisymposium on
Financial Mathematics, to be held on April 15-16, 2005. A first edition
was held at Purdue University on April 3, 2003, gathering 40 participants.
The planned format for this short conference includes: one afternoon one
morning, with expected attendance 60 to 80 participants; three main
invited one-hour talks, full travel reimbursement for these senior
speakers, 6 invited 25-minute talks, with partial travel reimbursement for
3 junior speakers; modest funds for coffee breaks, and one conference
dinner for invited speakers; partial travel reimbursement for 7 Ph.D.
students or postdoctoral scholars (people who obtained their Ph.D. no more
than 3 years ago), and the possibility to present their work in a poster
session. The three main speakers will be important researchers in
quantitative finance, known for their world-class work in both theoretical
financial mathematics and applied quantitative finance. The P.I.'s
scientific motivation for the conference includes exposing the
participants to an array of cutting-edge research topics in financial
mathematics, including stochastic volatility in option pricing, American
options, stochastic control and portfolio optimization under partial
information, interacting particle methods in finance, Monte-Carlo
financial simulation techniques.

The proposed conference on Financial Mathematics at Purdue University will
provide evidence to the participants that the interaction between Finance
and Mathematics is bidirectional: beyond receiving answers to its applied
questions, Finance provides great problems for probability theory,
statistical science, and applied mathematics, motivates the development of
new tools of intrinsic mathematical interest, and helps mold and improve
the image and the purpose of Mathematics with the general non-scientific
public. The conference will create an opportunity for the education of
graduate students and beginning researchers with an interest in
quantitative finance, by bringing local Purdue students in contact with
like-minded peers from other academic institutions, by providing role
models -- the main speakers, and by inspiring and uncovering possible new
research topics. The P.I. will encourage underrepresented minorities to
participate in the conference, and will target such groups for financial
support by selecting invited speakers and supported graduate and
postdoctoral participants appropriately.